U.S.-Korea Cooperative Research on The Long Range Transport of Pollutants in the Pacific Rim Region Around South Korea

This proposal requests funds to permit Dr. Gregory R. Carmichael, Department of Chemical and Biological Engineering, University of Iowa, to pursue with Dr. Min Sun Hong, Department of Environmental Engineering, Ajou University, Korea, for a period of 24 months, a program of cooperative research on the long range transport of air pollutants in the Pacific Rim region around South Korea. The research plan includes observation and modelling components. Background measurements of aerosol, ozone, and oxides of nitrogen and of sulfur will be obtained at Cheju Island located south-southwest of the Korean peninsula. Comprehen- sive modelling analysis of the long range transport of pollutants and their impact on the environment will be made. Chemicals released into the atmosphere can have many adverse impacts on the environment including local air pollution such as smog, regional problems such as acid rain, and global problems including the reduction of stratospheric ozone and global warming. South Korea's location between China, to the west, and Japan, to the east, provides an ideal location to study the transport and chemical charac- teristics of the east Asia plume. This research is of interest and benefit to the United States because it has now been well established that neither pollutants nor their effects are confined to the locations where the chemicals enter the atmosphere. The two investigators are outstanding scientists in the field of the project who have a record of successful collaboration in prior research. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Dr. Hong's participation in the project is supported by the Korea Science and Engineering Foundation (KOSEF).